Second RIMS-UCI Collaboration Conference: Arithmetic Applications of Moduli Degeneration; May 7-10, 2003; Irvine, CA

Title: RIMS-UCI Collaboration Conference on Arithmetic Applications of Moduli Degeneration

This project supports US participants to attend a workshop at UC Irvine, May
7 to May 10, 2003. The lectures combine algebra and complex analytic
geometry to give new insights into collections of algebraic relations from
refined parameter (moduli) spaces. Some lectures introduce a new zoo of cusp
types. These generalize cusps attached to modular curves. They extract what
governs previously subtle problems and enhance mature topics like Deligne's
tangential base points and Belyi covers. Tempered fundamental groups,
Modular Towers and cusp embeddings of curves in their jacobians appear in
featured lectures. Number theorists and algebraic geometers will find results
going far beyond those from a previous workshop in Kyoto, October, 2002 at
RIMS Institute. Especially, there are new applications to motivate students
and post-doctorals to learn techniques for classifying algebraic equations
from their bad reduction types. The invited speakers, and a capstone volume
to the previous publication series, will attract new Ph.D. students.

This project supports US participants to attend a workshop at UC Irvine, May
7 to May 10, 2003. Mathematical objects described by equations can be
painfully complicated, full of peripheral data one would like to eliminate.
Special structures on parameter spaces for these objects can help researchers
filter all but the essentials from these equations. This workshop follows the
more technical workshop at RIMS Institute in Kyoto, October, 2002. Our
speakers will emphasize significant new contributions to this data filtering
process based on cusp geometry. A lecture series by Yves Andre and focused
lectures by the other invited speakers will attract new Ph.D. students to the
field. They will learn new ideas for classifying equations by their bad
reduction types. Applications will be to a wide range of topics, including
string theory and height measures. A conference proceedings will disseminate
the results in a capstone to a previous series of related publications.